Student Travel Support for the 2014 IEEE International Symposium on Performance Analysis of Systems and Software (ISPASS-2014)

This project provides funding for travel awards to graduate students in order to attend the 2014 IEEE International Symposium on Performance Analysis for Systems and Software (ISPASS-2014). ISPASS is a premier forum for presenting, discussing, and debating advanced academic and industrial research work focused on performance analysis in the design of computer systems and software.

This project is focused primarily on broader impacts through the education students will receive from attending the technical sessions of ISPASS, mentoring that they will receive through the interaction with senior researchers, and networking opportunities they will receive through numerous different conference activities.